Promoting Cooperative Learning in a Mathematics Laboratory

The focus of this project is an emphasis on exploration and discovery of mathematical concepts by student teams through a constructivist approach. In developing this project, the personnel are reviewing laboratory configurations which have proven to be conducive to group work. Desired is a layout which would allow instructors increased flexibility in designing curricula and promoting student group interactions. *